Chain Growth and Selectivity for Carbon Monoxide/Hydrogen Reactions Studied by Transient Methods

This is a phase-out award for work on syngas (carbon monoxide/hydrogen) chemistry. Chain growth and selectivity are studies using transient methods.